Neostability and Continuous Logic

Pure mathematics research as a field of study focuses on understanding verifiable properties of abstract structures. It underpins a huge amount of modern technology, albeit in a largely invisible way. A big component of the reliability of modern technology rests on our ability to trust that it behaves the way we expect it to behave. Mathematical logic in particular was originally an effort to formally study the process of mathematics itself, providing a rigorous notion of proof in mathematics as well as tools for reasoning about proofs and provability. In the last few years, this has been explored as a way of improving the reliability of computer programming done by large language models (LLMs), with the ideal being that an LLM could produce both code and a formal proof that the code does what it's supposed to do. Model theory, the topic of this proposal, focuses on contexts in which logical consequences are particularly well-behaved. This has applications to things like numerical analysis, control theory, and robotics (via real quantifier elimination), but also to provably correct code in that it makes it easier to identify proof steps that can be done automatically in a reliable way. In a different direction, model theory, and in particular stability and neostability theory, has some surprising connections to the theory of machine learning, in that the kind of logical tameness studied by model theorists is directly related to the combinatorial tameness considered in learning theory (such as PAC learning). Continuous logic is a new development of model theory allowing it to apply model-theoretic tools to continuous structures, rather than just discrete structures. (This is analogous to shifting from considering abstract digital circuitry to real-world analog circuitry, or from an on-or-off light switch to a slidable dimmer switch.) Continuous logic has some connections to quantum computing and quantum information theory via C*-algebras, the principal object in von Neumann's rigorous formulation of quantum mechanics.

The technical focus of this project is on neostability theory and continuous logic, continuing earlier work on mutual generalizations of the model-theoretic dividing lines NTP2 and NSOP1, variants of Kim’s lemma, ultraimaginary independence and other broad notions of independence, issues surrounding categoricity in continuous logic, and the structure of definable sets in continuous logic. Neostability theory is an effort to widen the applicability of stability-theoretic tools (in discrete and continuous logic). The investigator's work on combinatorial tree properties is part of a current search for a satisfactory mutual generalization of the two broadest successful model-theoretic dividing lines, and his work has already yielded several notions that may be of broader applicability in model theory, such as the notions of bi-invariant and reliably invariant types. Continuous logic is a generalization of classical model theory designed to study structures based on metric spaces, such as Banach spaces, C*-algebras, and ℝ-trees. Continuous logic allows one to apply methods from model theory to such structures, and so building tools for continuous logic increases its usefulness to broader mathematics. Modern stability theory has its origins in the study of categoricity, and so studying categoricity in continuous logic could help to find new stability-theoretic tools for continuous logic. Applications of AI tools such as LLMs in this area are being explored, but publicly available models have not yet been able to meaningfully contribute to the intellectual substance of this work in particular.